Low Dimensional Topology via Differential Equations

9803166
Mrowka
This project will continue Mrowka's investigations into the study
of three- and four-dimensional manifolds (mathematical models for
space-time). These investigations center on relating properties of
solutions and spaces of solutions of the various equations of
mathematical physics (primarily the Yang-Mills and Sieberg-Witten
equations) to the topology of the space-times that carry the
equations. This strategy has been very successful in the past twenty
years, as evidenced by work of Yau, Schoen, Taubes, Donaldson, and
Uhlenbeck. Mrowka hopes in joint work with Kronheimer to resolve a
30-year-old conjecture about the topology of three-dimensional spaces
known as the Property P conjecture, an important step towards
Poincare's conjecture that the simplest model of a closed
three-dimensional space-time is characterized by the property that
every closed loop is contractible to a point without leaving the
space-time.
***